Some related problems for stochastic partial differential equations and backward stochastic differential equations

The PI will study three types of problems about stochastic partial
differential equations (SPDEs) and backward stochastic differential
equations (BSDEs). Firstly, he will build a connection between SPDEs
and BSDEs; and will use it to prove the strong uniqueness and regularity
properties for the solutions to such SPDEs. He will also study the rare events
phenomena for financial market using large deviation principle.
Secondly, the PI will derive a stochastic maximum principle (SMP) for
stochastic optimal control problems arising from real world applications
where the coefficients of the systems are not smooth. This will lead to two
new classes of BSDEs. He will study their solutions and will explore the
numerical approximation for these. Finally,
the PI will consider the parameter estimation
problem based on partial information. The key to the proof of the
consistency of such estimates is heavily dependent on the
establishment of a filtering stability result.

This research is motivated from the study of certain population
models, the wireless communication and the mathematical finance.
The PI will develop mathematic tools to study SPDEs and BSDEs arising from these problems.
The results obtained will be applied to various real world applications for the benefit
to the society. For example, the SMP can be applied to the power control
problem to serve the society in improving the efficiency of the
communication network. The study of the financial market will help
the government to regulate the market; especially, the large
deviation problem will help to characterize
rare events in the financial market. The parameter estimation
problem can be used to locate various targets including the hidden
source of pollution. Long-term effects on graduate and post-graduate training of students in stochastic analysis and optimal control are also expected.